Theoretical Studies in Ecological and Population Genetics

This research will develop a theoretical framework for understanding and interpreting two new types of biological data. The first concerns genetic hitchhiking. Genetic hitchhiking refers to the effect of a selected gene upon other genes on the same chromosome which are not themselves under selection. An extensive theoretical study of the dynamical behavior of such systems will help resolve current practical problems ranging from deducing the historical origins of selected genes to explaining the frequent lack of correlation between the physical distance separating two DNA variants, and their observed nonrandom association. This investigation is also applicable to the many heritable variants in DNA sequences which are currently being found near disease genes in humans, such as those responsible for Huntington's chorea and cystic fibrosis, as well as near important genes in natural populations of Drosophila. The other line of research will provide a theoretical foundation for interpreting and exploiting current data involving two components of an organism's genetic material: one transmitted through both parents (nuclear DNA), the other uniparentally inherited (e.g., mitochondrial and chloroplast DNA). The significant nonrandom associations found between these two classes of genetic material can, because of the contrasting modes of inheritance, provide a qualitatively new kind of information about the evolutionary history of human, animal, and plant populations. In order to take advantage of this unique information, an extensive theoretical study will determine what associations are possible between these two genetic components, and what force or combination of forces would account for the observed associations in natural populations. Formal statistical procedures will be concurrently developed to allow the testing of various evolutionary hypotheses and the estimation of important biological parameters such as the migration rate between two populations.